CAREER: Engineered Substrates of Semiconductor Alloys: A Fundamentally-Based Novel Approach

The research aspect of this CAREER proposal focuses on a novel and
fundamental approach for fabricating and engineering tunable band gap and lattice
constant multi-component semiconductor substrates for optoelectronic, photonic, high
speed electronic, spintronic, micro-electro-mechanical systems and photovoltaic
applications. The proposed substrate engineering technology is based upon several
advanced concepts recently developed in the areas of ternary and quaternary bulk crystal
growth from melts, thermodynamic modeling of multi-component alloys, and interfacial
defect generation by the principal investigator. As a part of this career award, a new
Substrate Engineering Reactor will be designed and installed for compatible multi-component
substrate growth and hetero-epitaxy. Multi-component engineered substrates
of III-V compounds and related device structures will be fabricated by employing the
new fundamental approach.
The integration of the proposed research with undergraduate and graduate
education at Rensselaer Polytechnic Institute will include: (a) development of new
introductory level interdisciplinary course for undergraduates in the area of compound
semiconductor materials and device structures with specific focus towards
microelectronics, optoelectronics, and spintronics, (b) development of a graduate level
course on emerging materials and high performance device technologies, (c) research
opportunities for at least two doctoral students and several undergraduate and master's
students in the areas of substrate engineering and device fabrication on multi-component
alloys with specific focus towards new device architectures. The introduction of the
above topics into the undergraduate and graduate curriculum is in synergy with
Rensselaer's educational plans and will enable and enhance student's exposure to rapidly
growing modern and future semiconductor technologies.